Statistics Electronic Classroom (SEC) For Instruction in Quantitative Methods in Psychology

9351541 Weiss This project involves fundamental changes in the ways statistics is taught in required and advanced undergraduate statistics courses in psychology. Students, many of whom have poor academic preparation and/or language difficulties, benefit from a highly visual and interactive learning environment by using an electronic classroom facility that contains student workstations with computers linked an instructor's station, as well as to the department and university computer networks. Mathematical and statistical illustrations are presented in a manner which enhances concepts. Students also perform appropriate exercises while the instructor monitors their progress and interacts with them. It is expected that the facility will also benefit instruction in experimental psychology, testing, and courses in computer applications in psychology. ***